Workshop on Learning, Intelligent and Hybrid Systems. To be Held in Bangalore, India, January 5-9,l998.

ECS-9727292 Georgiou The proposal is to support partial travel for U.S.A. participants to the Workshop on Learning Intelligent and Hybrid Systems, organized to take place between January 5-9, l998, at Bangalore, India. The goal of the workshop is to bring together investigators in the general area of Systems and Control, with an interest in emerging research directions in the fields of Learning, Adaption, Intelligent and Hybrid Systems. The workshop will be organized around a program with presentations by each participant, allowing time to create a forum for exchange of ideas and visions as to the outstanding challenges and direction of the field.